Rate-Based Flow Control Algorithms for High Speed Networks

In this project a new control-theoretic framework will be developed for
rate-based robust flow controller design for high-speed networks, and the
algorithms derived from this framework will be adapted for implementation in
ATM networks and in the Internet. For this purpose the PIs will collaborate
to investigate specific issues arising in their areas of expertise: ATM and
Internet flow control, and robust control of infinite dimensional systems.
>
>The mathematical models to be considered in this project are systems with
time-varying time-delays. For this class of systems, controller-design
methods will be developed by investigating several different approaches from
H-infinity control, Mu-synthesis, gain scheduling for linear parameter
varying systems, and Lyapunov stability theory. In particular, existing
gain scheduling techniques for finite dimensional linear parameter varying
systems will be extended to time delay systems.
>
>Controllers derived in this framework will be validated by comparing them
with the existing controllers designed for ATM traffic management. New flow
controllers will also be implemented and tested experimentally. First they
will be translated into algorithms to be implemented at the network-layer
(switches and routers) within the scope of existing standards. Both
connection-oriented networks (e.g. ATM networks) and connectionless networks
(e.g. IP based Internet) will be considered in the project. In the Internet
domain, techniques used will include writing into TCP windows, controlling
the rate of acknowledgements, writing into the ECN bit in the IP layer, and
developing a feedback framework in the Multi-protocol Label Switching (MPLS)
architecture. Towards this goal, new techniques will be developed to
translate rate-based control solutions into window-based control solutions
(especially for applicability in Internet traffic management).
>
>The algorithm design will be followed by a performance evaluation using
simulation and experimentation to assess the impact of these methods on
best-effort services offered to networked multimedia applications.
Experimental techniques will be used to determine traffic models, and
network measures of application quality, which will be used in simulation
studies of these algorithms in representative network configurations.
>